A Study of Contracts and Markets

This project consists of three independent parts. The first investigates in detail a different approach to the analysis of renegotiation of contracts. The emphasis of this approach is on taking explicit account of the role of the time dimension in the implementation and the renegotiation of contracts. The notion of renegotiation proofness employed here recognizes the fact that renegotiation of contracts normally involves some costs. The results so far indicate that this approach yields significantly different predictions than has been common in the related literature. The second part investigates the effect of small deviations from perfect maximizing behavior on the functioning of dynamic and decentralized markets. The basic intuition is that such models may capture explicitly the idea that the maximizing agents devote special efforts to gain at the expense of the nearly rational ones and in the proces disrupt significantly the operation of such markets. The third part is concerned with an industrial organization problem. The purpose is to investigate the nature of inventory accumulation resulting from strategic considerations faced by a durable goods monopoly. This research is significant because it enriches and changes important lines of research. For example, this project develops renegotiation-proofness criteria which take explicit account of the time cost of renegotiating contracts. There is a large, growing literature on the conditions that must hold for contracts to be renegotiation proof. This literature is important because the possibility of contract renegotiation can lead to inefficient market outcomes. Preliminary work by the investigator demonstrates that introducing time into contract renegotiation theory dramatically changes the results and suggests many promising new directions of research.